Quantum Well Diode Lasers for Mid-IR (2-5um) Wavelengths

9361871 Van Hove The principal investigator proposes to fabricate (A1GaInAsSb) quantum well laser structures for 2-5 um IR application. This material system has desired properties and will be compatible with III-V device processing technology. The laser diodes will be grown by Molecular Beam Epitaxy method. We shall use in-situ monitoring techniques for tight material parameter control, and use dopants which may lead to improved performance. The work will be based on our extensive experience in these materials. Materials will be thoroughly characterized and the growth condition optimized. Device modeling will lead to improved understanding and advanced structures for enhanced performance. ***